Exact Computational Biology Algorithms with Small Parameters

Many computational biology problems are NP-hard. For a large portion of
these problems, approximation algorithms seem to be improper,
since either the approximate solutions are too far away from the optimal
or the high computational complexity prevents them from being practical.
As a result, researchers are forced to use heuristic
approaches. However, it is likely that important information is
missed which could otherwise be obtained from exact algorithms.
Recent study has observed that in many
biological problems, it is possible to identify a parameter that is small in
most instances. The notion of fixed-parameter tractability (FPT) was
introduced which provides feasible exact
algorithms for intractable problems with small parameters.

The FPT framework has not enjoyed widespread success in computational biology
since most of the research efforts are from people who were originally
computer science theoreticians. Without the participation of biologists,
the formulations may not be accurate and realistic.
By employing biologically adequate formulations, computational
techniques such as FPT stand in a perfect position to bridge the gap between
theory and practice. Furthermore, the availability of huge
genome sequences requires the study of a tighter class of
fixed-parameter algorithms with strictly or nearly linear time.

The long-term goal of the research is to bring FPT techniques
into mainstream use in computational biology.
The specific objectives of the project are as follows:
(1) identify important computational biology problems which can be
addressed by the FPT framework;
(2) develop algorithms for these problems, trying to lower the time
complexity as much as possible; and
(3) obtain biological data and test the new algorithms on real-life data.
The research will apply the algorithmic techniques that have
proven to be successful in parameterized computation to solve problems
that seem intractable but important and realistic in computational
biology. The results of the research have the advantages of being
precise and effective, compared to the traditional approaches such as
approximation and heuristic algorithms.

The broader impacts resulting from the project:
The research is highly inter-disciplinary, which involves
heavy collaborations in both computational and life sciences, and
will provide an excellent educational environment for students
who have mutual interests in both fields.